Bifircations and Dynamics of a Shear-Layer-Driven Cavity (Engineering)

Shear-layer-driven transition in a rectangular cavity serves as a generic system for unstable shear-driven flow in many engineering systems (e.g. openings in the fuselages of aircraft, expansion joints in pipelines and dead zones between chip carriers on printed circuit boards). Flow visualization and pressure measurements have shown that, between the states of periodic and fully developed turbulence, at least three different regimes of time-dependent fluid motion occur. These weakly turbulent regimes and the low, noninteger values of the correlation dimension seem to indicate that this open system is a low-dimensional system that has chaotic behavior. To completely understand the transition process in the cavity, the number and types of bifurcations that cause the system to evolve from one state to the next must be known. To test the applicability of treating open systems in transition as low-dimensional dynamical systems, a model of the cavity should be developed and tested against the experiments. While at Cornell University, bifurcation theory and dynamical systems analysis and modeling will be studied and applied to the shear- layer-driven cavity system. The computing facilities at Cornell will be used to analyze the large files of data taken at Lehigh and to develop the model. Teaching at Cornell will be done at the undergraduate and graduate level in two different engineering departments. Since there are very few women in graduate programs in mechanical/ aerospace engineering and chemical engineering, interaction with the undergraduate women engineers will be emphasized and the opportunities offered to them by attending graduate school will be stressed. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.